DISSERTATION RESEARCH: The Evolution of Late-Life Fecundity

The objective of this proposal is to test general theories of late life - both evolutionary and
non-evolutionary - using fecundity. Thus far, fecundity has been shown to plateau late in life and
evolve according to evolutionary theory. Alternative non-evolutionary hypotheses have not been
able to satisfactorily explain these results, as late-life fecundity plateaus do not arise from
diminished male sexual function, nutritional effects, or mortality-rate plateaus.
The proposed experiments will specifically test the heterogeneity and antagonistic
pleiotropy theories of late life, using Drosophila melanogaster. Heterogeneity in fecundity will
be tested by measuring lifetime individual fecundity within a large cohort and comparing
fecundity patterns of females that survive to the fecundity plateau with those that do not.
Antagonistic pleiotropy between late-life fecundity and early fitness will be tested using 25
generations of selection for earlier reproduction, followed by a comparison of late-life fecundity
between the early-reproducing cohorts and the original later-reproducing cohorts.